A Special ACS Symposium on Application of Surface Science to Problems in Tribology to be eld in Atlanta, Georgia on April 14-19, 1991

Partial support is provided for a symposium which will explore areas of common interest between two fields - surface science and tribology. The purpose is to encourage synergism between these two research communities in order to improve our understanding of the fundamental nature of tribological surfaces, surface processes and films.